CSR--AES: VT-ASOS: Virtualization Technologies for Application-Specific Operating Systems on Many-Core HPC Systems

Many-core systems are emerging as the dominant architectural paradigm in
high-performance computing. As the number of cores continues to increase,
effective resource allocation and scalability across the application
and system software stacks becomes paramount. Virtualization can
address these challenges while simultaneously increasing productivity in
high-performance software development for these platforms. The VT-ASOS
project augments virtualization technologies to provide encapsulated
and customized hardware execution environments for parallel applications.

We use a model in which the tasks comprising a parallel application
are encapsulated in their own runtime execution environment. VT-ASOS
consists of user-level runtime libraries, combined with a minimal, custom
guest operating system that knows the application''s requirements
and implements only the functionality that the application needs.
Each guest kernel runs on top of an enhanced virtual machine monitor
(VMM), which makes resource management decisions that optimize the
assignment of hardware resources to tasks.

VT-ASOS will support application-specific system configuration,
application-specific schedulers, and many-core aware memory management
policies. A monitoring infrastructure exploits hardware and software counter
to guide the decisions made by the infrastructure.
The research uses the Xen VMM and Linux as a testbed.

This research will improve virtualization technologies, reducing
the overhead of virtualization and improving performance isolation
between virtual machines sharing the resources of dense shared-memory
multiprocessors. An outcome of this project will be a limited and
well-defined set of programmable modules for plugging application-specific
policies and mechanisms into virtual machines.